Sequencing Transfer RNAs by Mass Spectrometry

The Analytical and Surface Chemistry Program, with co-funding from the Molecular and Cellular Biosciences Genes and Genome Systems Cluster, supports Prof. Patrick Limbach at the University of Cincinnati for work targeting a mass spectrometry-based approach to higher throughput sequencing of transfer ribonucleic acids (tRNAs). Many types of RNAs are involved in key cellular functions in all living cells. Among all known bio-organic molecules within living cells, RNA molecules are the only ones that store genetic information and act as catalysts. In the course of this research, Dr. Limbach and his group will establish new methods to fractionate mixtures of tRNAs; will develop a strategy for tRNA enrichment allowing rare tRNAs to be expressed and sequenced; will use a combination of normal and limited RNase digestion for increasing tRNA sequencing read length; and will enhance the RNA database of signature digestion products. The project will provide researchers with additional tools that can examine transcription and translation processes, complementing existing genomic and proteomic strategies. These developments will provide enabling advances for RNA researchers and can be translated to related areas of nucleic acid analysis (e.g., xenobiotic modifications).

In addition to the technical impacts outlined above, the work offers broader impacts by providing students with education and training in key areas of biological mass spectrometry. Dr. Limbach strives to expand the number of underrepresented minorities engaged in science in general, and mass spectrometry in particular.